An Exploratory Examination of Public Attitudes Towards Science and Technology

Using 13 years of SRS-sponsored attitudinal data, the PI will use multivariate analyses to identify important independent variables to explain attentiveness and other concepts of interest to the program. Further, the project will explore possible changes over time in these variables, with particular emphasis on male/female differences in attentiveness to science and how the explanatory variables for these differences may be changing.